Dissertation Research: An Archaeological Survey in the OlmacHeartland, Veracruz, Mexico

Under the guidance of Dr. Robert Drennan, Mr. Robert Kruger, a graduate student in anthropology at the University of Pittsburgh, will collect data for his doctoral dissertation. Mr. Kruger will conduct an archaeological survey of an approximately 100 square kilometer area situated between the sites of San Lorenzo and El Macayal which are located in the Gulf region of Mexico. Both these large sites are attributable to the Olmec and Mr. Kruger's survey will yield valuable data on the rural population which surrounded and sustained them. The surface survey will be augmented by limited stratigraphic testing and materials such as potsherds will be collected and identified. The Olmec was the first complex stratified society to arise in Middle America and Olmec peoples constructed impressive ceremonial sites with monumental-scale stone sculptures. While these large sites have been the subject of archaeological scrutiny, very little is known about either the hinterlands which surround them (where the majority of the farming population likely lived) or the process which led to the development of this complexity. Several theories have been proposed and these vary from postulated intergroup competition and warfare to the development of internal status differention within single groups. Mr. Kruger believes that through analysis of settlement pattern and how it changes over time it should be possible to select among alternative scenarios. This research is important for several reasons. It will provide data of interest to a large number of Middle Americanist archaeologists. It will increase our understanding of the processes which lead to the development and maintenance of complex societies and assist in the training of an extremely promising young scientist.//